Japan STA Program: Nucleation and Growth of High Quality Diamond Thin Films for Electronic and Optical Uses

9408064 Dennig This award supports a 12-month Science and Technology Agency of Japan Postdoctoral Fellowship for Dr. Paul Dennig, Department of Materials Science and Engineering, Stanford University, at the National Institute for Research in Inorganic Materials (NIRIM), Tsukuba, Japan. Dr. Dennig will work with Dr. Mutsukazu Kamo in the Advanced Materials Research Center, NIRIM, on a research project entitled, " The Nucleation and Growth of High Quality Diamond Thin Films for Electronic and Optical Use." The research project focuses on the most recent methods of producing thin polycrystalline diamond films. Since formation of diamond thin films begins with the nucleation of many individual crystallites on a substrate surface, the researchers will explore the erratic nucleation behavior of diamond crystals. The team will study nucleation as a function of electric fields, carbon bond ration of initial carbon layers, substrate materials, gas phase chemistry and substrate temperature. If nucleation can be controlled, then morphology and film properties can also be controlled. Such control over diamond growth onto non-diamond substrates would permit the fabrication of diamond electronic and optical devices of the highest quality. ***